Collaborative Research: Speaking the Truth in Maritime Risk Assessment

Over the past 6 years the principal investigators have developed a
methodology for assessing the risk associated with maritime
transportation. The methodology utilizes dynamic simulation of the
maritime transportation system, expert judgment elicitation models and
probabilistic risk assessment (PRA) techniques. The approach has proven
useful in three major maritime ports in the United States i.e. Port of
New Orleans (Mississippi River in Louisiana), Port Valdez (Prince
William Sound in Alaska) and Port Seattle (Puget Sound in Washington
State). Two of these studies focused on passenger safety, while the
other focused on oil transportation risk. The National Research Council in
1998 assessed the methodology and concluded that representation of uncertainty
in the maritime risk assessment method is lacking. "The Prince William Sound
Risk Assessment is an important step forward in using probabilistic risk
assessment methods to assess the safety of transporting oil in large tankers
in PWS. Because the data were very limited, the analysis results and the resulting
conclusions are not robust and are necessarily uncertain [National Research
Council, 1998]."

This NSF project will allow the maritime risk assessment method to live
up to its promise by developing a coherent theoretical framework to
address uncertainty. The truth is that we are uncertain. Therefore,
speaking the truth implies that we express our analysis results in terms
of probability curves rather than fixed points estimates. [See, e.g.,
Kaplan, 1997]. The intellectual merit of the research stems from the
development of an overarching Bayesian framework for addressing
uncertainty when simulation of systems states is combined with available
data and expert judgment to assess risk and risk intervention
effectiveness. The broader impact of the proposed work is primarily
drawn from its applicability to areas other than maritime accident risk
such as e.g. maritime security risk (intentional events as opposed to
accidents). The framework and methodologies to be developed will be
applicable to other transportation modes, such as aviation or road
safety. Aside from aviation security and accident risk, the technique
will be directly transferable to the ever-increasing problem of runway
incursions as a result of increased traffic congestion at our national
airports.